RUI: Logic and Computation: Automating Proofs in Calculus and Analysis in Teacher Preparation

At present there are large computer programs capable of representing mathematical proofs (such as NuPrl) and large computer programs capable of symbolic computation (such as Macsyma), and many theorem-proving programs that try to find proofs. But these three capabilities are nowhere present in the same system. In this project, a single system smoothly integrating symbolic computation and representation of mathematical proofs will be built, and supplemented with proof-finding algorithms. A prototype version has already been able to generate automatically an epsilon-delta proof of the continuity of f(x) = x^3. The system to be built will be able to generate many other epsilon-delta proofs and other more complicated proofs in analysis. ***